I-Corps: Transformation Potential of an Advanced Traffic Management Solution

The broader impact of this I-Corps project is based on the development of an advanced traffic management system that leverages cutting-edge sensor systems and data analytics technology to enhance urban mobility and safety. By offering real-time, detailed traffic signal and intersection data to various stakeholders, including public agencies, map providers, and automobile manufacturers, this innovation promises to significantly reduce traffic congestion, minimize delays, and improve environmental sustainability. The potential benefits of this solution come from catering to the immediate needs of drivers and urban planners, and also in its scalability to meet the demands of a growing market for real-time urban traffic data. Overall, the broad societal benefits could include improved urban living conditions, enhanced public safety, and a reduction in carbon emissions through optimized vehicle movements.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of the technology. The solution is based on the development of a Real-time Intersection Optimizer (RIO) and a Sensor Fusion Algorithm (SENSIBLE). This approach focuses on the use of data integration and analysis to provide a detailed understanding of urban traffic flows and mobility patterns. The novel solution is grounded in the latest advancements in urban data analytics and smart city solutions, aiming to improve traffic management systems. This solution not only advances the academic field of urban planning and smart infrastructure, but also demonstrates a practical application of research to solve complex urban challenges.